REU: Evolutionary Genetics of the Genus Fundulus

The present study will attempt to reconstruct the phylogenetic history of the genus Fundulus, a group of about 35 species of freshwater and brackish water fishes, commonly known as killifishes or topminnows, using genetic similarities determined from starch gel electrophoresis of enzymes. This is an ideal group of species for studies for this sort, because the number of species is large enough to provide interesting results, permit thorough examination of the variety of geographical areas and ecological habitats occupied, and to utilize information from disparate types of studies to interpret patterns and processes of evolution. The results of the study will be useful to many biologists since killifishes have been used extensively as experimental animals for many kinds of biological research.